Acquisition of a Stopped-Flow UV-Vis Spectrophotometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Miami University will acquire a stopped-flow UV-VIS spectrophotometer. Research will focus on the following studies: a) chemistry of carcinogenic esters derived from heterocyclic aromatic amines; b) oxidation-reduction reactions of oxyhalogen species and ozone in aqueous solution; c) kinetic mechanism of metallo-beta-lactamases; and d) study of glyoxalase II.

Stopped-flow spectroscopy is critical for the study of rapid chemical reactions, as it enables the detection of ultraviolet or visible light-absorbing short-lived intermediates. These studies will have an impact in a variety of areas including environmental sciences and biochemistry.